Acquisition of a Solids Nuclear Magnetic Resonance Spectrometer

This project provides an Nuclear Magnetic Resonance (NMR) spectrometer with a 300 MHz, 7 Tesla, wide bore magnet, dedicated to the fundamental investigation of a wide variety of solid materials. NMR spectroscopy is the only tool available for the characterization of the molecular structures of many noncrystalline and nanocrystalline solids. The fundamental structures of ternary chalcopyrite compounds having potential applications as catalysts, ceramics, and optical materials will be analyzed. The structures of solid state laser and nonlinear optical materials containing dyes, nonlinear optical polymers, and semiconductor quantum dots prepared by sol-gel methods from siliconal koxides, from mixed metal alkoxides, and from mixtures of alkoxides and organic polymers will also be analyzed. Additional studies of polymer-silica composites and polymer liquid crystals, composites of colloidal silica crystals in noncrystalline polymers, and nonlinear optical polymers will be studied. Yet another project includes studies of modified sol-gel derived hosts as solid state laser and nonlinear optical materials, solid state laser materials using mixed organic/inorganic polymer hosts, and nonlinear optical materials based on active dopants in a sol-gel derived host. A study of the structures of plant cell walls is also planned. Knowledge of the chemical structures will aid in understanding the properties and functions of the materials and in the design of synthetic materials with improved performance. The instrument will be shared by four faculty and several other users within the university, as well as a few individuals from outside the university. The instrument will also be equipped with two 5 kHz magic angle spinning probes. There are presently two liquids spectrometers and one multinuclear NMR. This will be the only solids NMR capability in the State of Oklahoma.